Ocean Carbon Transport, Exchanges and Transformations (OCTET): Workshop Management

The principal investigator will convene a workshop of approximately 40 participants to assess current scientific needs in ocean carbon cycle research and to discuss the possibilities of proposing a new research initiative aimed at addressing those needs. The workshop on Ocean Carbon Transport, Exchanges, and Transformations (OCTET) would be designed to fit within the framework of the Carbon Cycle Science Plan (CCSP) prepared for consideration for consideration by the federal agencies and addopted by the U.S. Global Change Research Program. As its point of departure, the primary goal of OCTET will be to characterized physical, geochemical, and biological controls governing the regional and vertical partitioning of inorganic and organic carbon pools in the world ocean, including the spatial and temporal variations in the partial pressure of carbon dioxide in the surface ocean. The principal investigator will manage workshop preparations, execution, and distribution of its scientific findings.